Grothendieck and Homology Theory

9554311 Ames This proposal is a planning grant to develop a comprehensive model for integrating technology into teaching mathematics, science and social studies for both undergrad courses in the deciplines and in the preparation of K-12 teachers. The fundermental premise of this model is that significant integration of technology into teaching will only occur with the simultaneous engagement of university science and mathematics faculty, university teach education faculty, students in K-12 school districts. In the fall of 1994 the Deans of the College of Education and the College of Natural Science agreed to place a high priority on developing collaboration between the two colleges around the integration of technology in teaching, both for university courses and for preservice and inservice work with K-12 teachers. Pursuant to that priority they appointed a planning committee with representatives from the two colleges, the Office of Computing and Technology, and the Ingham Intermediate School District. Concurrently, the College of Education, with support from the University and private industry, designed a new Technology Exploration Center that embodies innovative design principles that offer a unique approach to integrating technology into education. This center, which opened in January 1995, is located in a highly visible, central location in the College of Education, is organized around subject matter applications and is designed to create a socially inviting environment to stimulate discourse about educational among faculty, students, teachers and school children. In April 1995 the planning committee hosted the first "Technology in Education Showcase" in the Center in which nine university faculty presented their uses of technology in teaching to an invited group of faculty from the two colleges, K-12 teachers, Intermediate School Representatives, and graduate students. The showcase stimulated a high level of engagement and discourse about the possibiliti es and challenges of integrating technology in teaching. The planning grant will support a yearlong series of four such technology showcase meetings, including outside speakers, that would be open to a wide audience with the specific intent of developing a full proposal for a systemic approach to extending this model to a larger educational community. Study groups including faculty, students and teachers will be organized around new hardware and software applications. In addition, the grant will support making these deliberations visible on the internet, both to invite input from other universities around the country and to share the emergent model. The model will address a priority identified in NSF's Division of Undergraduate Education: "A major emphasis is teacher preparation programs that feature both small- and large-scale efforts to engage the nation's college and university faculties in the undergraduate education of the next generation of K-12 science and mathematics teachers." ***